Committee on Astronomy and Astrophysics

AST-0075757
Parriott

The Committee of Astronomy and Astrophysics (CAA) is the National Research Council's advisory body for astronomy and astrophysics, both ground and space-based. The objectives of the CAA are to monitor the status of astronomy and astrophysics, to provide broadly based independent strategic advice to federal agencies, to serve as a multi-agency forum for discussion and coordination, and to monitor implementation of the recommendations in the report of the decadal Astronomy and Astrophysics Survey Committee. The CAA meets these objectives by conducting meetings and by producing reports and studies as needed and as requested by federal agencies and by Congress. The activity is supported jointly by the NSF and NASA. This award is funded by the Division of Astronomical Sciences.
***